LTREB: Demography and Genetic Diversity of a Threatened Floodplain Species, Boltonia decurrens

Boltonia decurrens is on the Federal list of threatened plant species; and is currently threatened in Illinois and endangered in Missouri. Its endangered status is due to habitat loss resulting from channelization of the Mississippi and Illinois Rivers. Following a disastrous flood in the American Midwest in 1993, state and federal agencies are re-evaluating flood control policies, including the effects they have on floodplain plant species. The present project will enable us to acquire knowledge concerning the habitat requirements of B. decurrens, the effects of floodplain hydrology on the species, and how new management practices can be implemented to reserve suitable habit for it and other threatened floodplain species. The project will yield the most complete picture of an endangered species ever obtained, and result in a model that can be applied to other species in similar environmental systems. This knowledge will reduce the waste of valuable resources by avoiding the hit or miss preservation efforts which result from conservation actions in the absence of sound biological knowledge.